Mathematical Sciences: Order Restricted Inference in Multivariate Variance Components Models

The research involves the study of estimation in unbalanced multivariate variance components models using an approach based on a Fenchel duality formulation of the problem. The effort will be concentrated in estimation and testing of covariance matrices in multivariate variance component models, relating the results to appropriate fields of statistics, and studying rates of convergence of the proposed algorithms. The multivariate random effects model involves constraints that the covariance matrices of the random effects be nonnegative definite which leads to a Lowner ordering of matrices. Algorithms will be investigated find to the restricted maximum likelihood estimators of such matrices.